Joint pilot project to develop a survey of careers of higher qualified people

The objective of the project is to explore the feasibility of developing a country's capability to survey higher qualified people, including recipients of doctorate level degrees. The primary purpose of the research is to establish an internationally coordinated survey of the careers of higher qualified people, building on the existing work currently conducted. An important element of this work is to measure the mobility of higher qualified people within a country but especially across borders. The interest in cross-border movement underscores the need for this survey to be internationally comparable.